Technology-Based Learning: Exploring Statistical Concepts and Methods

New data-analytic and concepts-based textbooks along with advances in statistical software, and computer and multimedia technology now offer the opportunity to rethink the way in which we teach statistics. This project, in coordination with an effort at Ohio State University, is combining and augmenting these resources to develop a unified curriculum and supporting materials for teaching statistical concepts and methods. Products of the project will include: laboratory manuals designed as a bridge between standard texts and computer software that will guide students through experiments that generate data for analysis; start-up materials to aid students use computers for statistics; a machine-readable encyclopedia of examples and problems that will include data, descriptions of experiments, and computer-based retrieval; and a computer CD-ROM archive of edited video materials keyed to specific statistical concepts and tied to an instructional statistics program.